SBIR Phase I: Multi-Step Sequential Processing of Gas Ions for Identifying Volatile Organic Compounds in Recirculated Air of Energy Efficient Buildings

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase I project is to improve human health, energy savings, and improved environment. Increased urbanization worldwide and demand for high quality, comfortable ambient air environments is expected to drive an existing market for improved heating, ventilation, and air conditioning (HVAC) systems estimated at $12 billion nationally and $190 billion worldwide by 2026. Respiratory disease and human illness are attributed to unregulated amounts of these constituents in indoor air. This project will inform users about the concentrations and identities of volatile organic compounds (VOCs) in recirculated indoor air from energy-efficient HVAC systems.
This will inform clinical analyses of disease, industrial process monitoring, screening of food purity and authenticity, and commercial aviation security.

This SBIR Phase I project will leverage discoveries in the chemistry of ion fragmentation in strong electric fields in air at ambient pressure and the association of these fragments with molecular identity. Additional merit is derived from algorithms for identification of ion spectra, dependences of fragmentation on electric field strength, and processes to handle ions both in the initial step of ion selection and the final stage of fragment ion analysis. This will be a novel exploration of strong electric field fragmentation of gas ions at ambient pressure. Research objectives include tasks to establish broad understanding of mechanisms of ion fragmentation of volatile organic compounds as gas ions at ambient pressure and establishing autonomous molecular identification using spectral profiles from mobility analysis. The research is organized into three phases including the development of efficient, advanced control of ion fragmentation, the discovery of chemical rules governing ion fragmentation, and the integration of artificial intelligence with chemical instrumentation developed in this project. The key technical result anticipated in this project is a chemical analyzer for autonomous monitoring of the quality of recirculated indoor air in green heating, ventilation, and air conditioning systems in green buildings.